Local Regularity and Long Time Behavior of Solutions on Non-Linear Evolution Equations

Proposal DMS-04006627

Title: Local regularity and long time behavior of solutions of
nonlinear evolution equations

PI: Igor Rodnianski, Princeton University

ABSTRACT

The focus of this proposal is the study of the local regularity and
global behavior of solutions of the Einstein equations.
The local behavior is encoded in the propagation of local regularity
in the scale of the L2 based Sobolev spaces.
We will attack the L2 curvature conjecture, which asserts
that a solution, metric g, of the Einstein vacuum equations Ric(g)=0
can be locally extended as long as its curvature tensor is bounded in
L2.
The problem is beyond the range of application of the standard Fourier
analysis
based methods and thus will require development of new analytic tools.
The global behavior will be studied in the context of the problem
of stability of Minkowski space in the wave coordinate gauge.
This particular gauge is used in physics to construct the
post-Minkowskian
approximations and we hope to provide an additional insight into
validity
of these expansions. The stability problem belongs to the category of
global
existence for solutions with small data problems for the equations not
satisfying
the standard null condition.

The Einstein equations of General Relativity provide the main classical
description
of evolution of the physical space-time continuum. The study of
mathematical and
physical phenomena arising in General Relativity is of the fundamental
importance.
While the physical understanding of the subject has made rapid
advancement and generated a number of outstanding conjectures the
rigorous mathematical picture is
yet to emerge. The latter is to a large extent due to a highly
nonlinear
nature of the Einstein equations and a lack of the mathematical tools
to deal with it.
The development of a satisfactory mathematical approach lies on the
interface between
Analysis, Geometry and Partial Differential Equations.